Interactive Learning with a Digital Library in Computer Science

9312611 Fox This project will enhance the computer science undergraduate learning experience by integrating courses with usable and useful computerized materials comprising a comprehensive Digital Library. Work at Virginia Tech and at Norfolk State University, an historically black university, will demonstrate the cost effectiveness of using Digital Libraries as the integrating concept for improving learning through interaction with rich research resources. By applying information retrieval, hypertext, multimedia, and human-computer interaction methods, value will be added to the Digital Library. Parts of a number of courses will be enhanced through interactive use of algorithm animations, video, images and text. There will be two new courses, "Human-Computer Interaction" and a one credit University service course "Using Computers and Networked Information". The existing course on Computer Professionalism will make extensive use of the Digital Library as an information resource. The Database Management course will be revised to give students hands-on experience with manipulating the Library itself. In addition, changes will be made to courses in Data Structures, Algorithm Analysis, Introduction to Computer Science, Formal Languages and Automata Theory, Parallel and Distributed Computation, Numerical Analysis, and Software Engineering to take advantage of this new resource. The project includes plans to work with ACM to provide access to the enhanced Digital Library to other computer science departments throughout the nation. ***